Mathematical Sciences: Partial Differential Equations and Geometric Analysis

Much of the research sponsored by this award will focus on variational problems in mathematical analysis and the partial differential equations which derive when extrema are reached. The variational problems are normally reflections of some physical principle such as the minimization of action or energy. The proposal focuses on four areas, most of which represent continuations of research currently in progress. Elliptic variational problems represents one area. The form of the associated differential equation is one of inhomogeneous divergence type. It is formulated to reflect a variational problem involving an obstacle. The equation has a forcing term which is a measure, or distribution, rather than a function. A goal of this work is to determine the regularity properties of the solution and the geometry of the contact set of the obstacle (which may not be known) in terms of assumed smoothness of the boundary of the obstacle. Parabolic variational problems will also be treated. The obstacle problem will again be considered. This class of problems is more difficult to analyze than the elliptic because there is a lack of symmetry between the space and time components of the differential operator. Still, some results from the elliptic case are expected to be applicable here. Another variational question to be addressed is that of minimizing (integrals of) gradients of functions on domains in which the function's boundary values are specified. A question of concern here is that of smoothness - there are examples of minimizing functions which need not be smooth across the interior of the domain. Work will be done to characterize when one can expect smooth extremal functions in this context. The fourth area to be treated is that of non-linear potential theory. This concerns a number of questions about a differential operator, the p-Laplacian, which has been the subject of considerable interest recently. Solutions of the corresponding differential equations enjoy many of the properties of harmonic functions. Emphasis will be placed on understanding the critical set where the gradient of solutions equals zero.